Improving the Computer Integrated Manufacturing (CIM) Curriculum Through the Acquisition of a DNC System

The acquisition of a Distributed Numerical Control (DNC) System at Camden County College enables students to fully integrate Computer Aided Design (CAD) to Computer Aided Manufacturing (CAM) to the Computer Numerical Control (CNC) machining. This acquisition allows data to move automatically onto the factory floor, truly integrating computers in manufacturing. The broad goals of career education, education for life and employment, form the core of the Computer Integrated Manufacturing (CIM) curriculum. The CIM curriculum provides students at the community college with the education and skills to respond to the present and future needs of business and industry, and the addition of the DNC system to the CIM laboratory creates a fully integrated industrial environment for the program.